US/PRC/Japan Trilateral Seminar/Workshop on Structural Control

As a part of the U.S./China (PRC) Protocol Annex III Program on Cooperative Earthquake Studies, a U.S./PRC/Japan Trilateral Seminar/Workshop on Structural Control will be held in October, 1992, in Shanghai, China. The objective of the Seminar/Workshop is to initiate research cooperation between Chinese researchers and U.S./Japan researchers in the area of structural control, to review progress and program emphasis to date within each country, and to propose directions for future collaborative research. Active bracing systems and active mass dampers, among other control systems and devices will be studied. Possibilities of joint field experiments of one or two large-scaled structures, among several candidate structures available in China, will be discussed. Funds are provided to support travel of participating U.S. researchers in the Seminar/Workshop. Proceedings of the presentations and discussions will be published in the book form and widely distributed.